Interdisciplinary Facility for Plant Biotechnology

The establishment of an instructional facility for plant biotechnology supports instructional modules, a plant cell and tissue culture course and undergraduate research. The facility is equipped with laminar air flow benches to provide sterile working space; illuminated incubators and incubator shakers for maintaining strict control of light and temperature; an electroporation system that allows insertion of genes by making protoplasts competent to take up DNA; and a peristaltic pump to pump solutions past cells in student made bioreactors. Instruction stresses the development of both technical and problem solving skills.